A Personal Computer-Based Image Processing System for Earth-Science Instruction

The analysis of digital spectral data obtained by satellite and air- borne scanners is being used to improve undergraduate education in earth science at Whittier College. Recent technological improvements now permit image processing using personal computers so that the digital data can be processed and displayed on a television screen without the need for large computing facilities. The digital images thus generated resemble aerial photographs of very large areas and are of interest to earth scientists, land managers, policy makers, social scientists, and others. The system is being used as a flexible tool which allows students to manipulate the data to suit their particular interests. A new course in the applications of remote sensing has been developed, aimed at science and non-science majors, and modifications have been made in the laboratory work of six lower- and upper-division courses. Through these several improvements and new initiatives, students are being introduced to one of the most recent techniques of data acquisition and analysis, thus faciliting their appreciation of regional relationships, of the importance of spatial and space-time perceptions, and of the connections between geology and other disciplines.